Midwest Geometry Conference, 1998-2001

The Midwest Geometry Conference is an annual meeting dedicated to the dissemination of important recent advances in Differential Geometry, Geometric Analysis, and Integral Geometry to the community of Midwestern mathematicians. Each conference is devoted to a small number of topics that are central in geometry and geometric analysis or bring up important and productive connections with other fields of mathematics and applied science. The aim is to create a focused environment, bringing together leading mathematicians in the different fields of mathematics and students or young professionals that have just started their career.